Block Travel Grant for the Fifth International Conference on Harmonics in Power Systems (ICHPS-V), to be Held in Atlanta, GA., September 23-25, 1992

This is a block travel grant for students to attend the fifth international conference on harmonics in power systems. It seeks to involve students in the rapidly emerging area of power quality and the research issues which are challenging the community.